Surface Rupture of the 1957 Gobi Altay Earthquake and the Origin of lh Bogd

The PI will carry out a two-year investigation of the area surrounding the mountain, Ih Bogd, and the rupture area of the 1957 Gobi Altay earthquake in southern Mongolia. The proposed research includes (1) mapping the surface rupture in some detail and (2) searching for and dating organic material to constrain recurrence intervals of such earthquakes and Lake Quaternary rates of slip and vertical movements. Long term goals include understanding how the landscape in such a clearly intracontinental region evolves by both tectonic and surface processes. Using a total station he will make topographic maps of some 30 to 50 segments of the rupture zone of the Gobi Altay earthquake in order to obtain objective data to determine the amount of slip, variations in such amounts along the ruptures, and the orientations of the slip vectors on the various segments.